Selective Acid Gas Removal

The selective absorption in packed columns H;i2S and CO;i2 from natural, synthesis, and refinery gas streams into tertiary alkanolamines is investigated. The project objectives include: investigation of the use of cross-flow hydrodynamic models to describe chemical absorption/stripping in packed columns; a re-examination of existing hydrodynamic models for packed columns/beds through salt tracer experiments and the understanding of their relationship to mass transfer through C140;i2 tracer experiments; development of process models for chemical absorption/stripping in packed columns that are sufficiently rigorous to predict selectivity as well as being computationally efficient; and experimental verification of process models with a laboratory packed column.